Collaborative Research: The Physiological and Biochemical Underpinnings of Thermal Tolerance in Antarctic Notothenioid Fishes

The ocean surrounding Antarctica is home to an extraordinary assemblage of fishes, dominated by a single group that are extremely well-suited to life in icy waters and which are of significant ecological importance there. Of great concern is the capacity of these fishes to withstand increases in temperature as the region of the Western Antarctic Peninsula warms at a rate faster than any other area in the Southern hemisphere. One particular group of Antarctic fishes, known as the icefishes, are particularly vulnerable to increases in temperature because unlike all other vertebrates on earth, icefishes are white-blooded due to their lack of the oxygen-binding protein hemoglobin. This greatly reduces their capacity to transport and deliver oxygen to tissues compared to red-blooded Antarctic fishes. Previous studies have shown that icefishes are indeed less tolerant to elevations in temperature but the underlying factors are completely unknown. Additionally, it is not understood if red- or white-blooded Antarctic fishes can adjust, or acclimate, to modest increases in temperature, similar to those changes in temperature the animals might experience as the earth warms. The investigators will determine if heart function and/or nervous system function limits thermal tolerance of Antarctic fishes, and will determine their capacity to acclimate to warmer temperatures. The project will further the NSF goal of training new generations of scientists by training graduate and undergraduate students. In addition, the project will collaborate with a high school biology teacher from a school which serves a largely minority student body. The students will learn about the marine environment, and will construct a camera to be used in the field to learn more about Antarctic fishes. Two students and the teacher will also attend a summer marine biology internship program.

Antarctic fishes within the suborder Notothenioidei (called "notothenioids") are among the organisms on earth least able to deal with changes in temperature. The hemoglobinless icefish are even less able to withstand temperature changes than are red-blooded notothenioids. While this is well documented, the underlying physiological and biochemical mechanisms responsible are unknown. The investigators will test the hypotheses that cardiac work is significantly greater in icefishes compared to red-blooded species, and that as temperature increases, the greater cardiac work of icefishes, coupled with reduced blood oxygen-carrying capacity, results in cardiac failure at a lower temperature compared to red-blooded species. They also hypothesize that neuronal function limits thermal tolerance of red-blooded notothenioids. These hypotheses will be tested using a wide variety of experiments. For example, the investigators will measure heart rate concurrently with critical thermal maximum. They will also characterize metabolic and gene-expression responses to elevated temperature and determine if mitochondrial function contributes to thermal tolerance using a variety of techniques. To determine if neuronal function limits thermal tolerance they will quantify behavioral responses to warming of whole animals and to warming of only the brain area. They will also determine if acclimation to warmer temperatures impacts heart function and they will measure activities of a variety of enzymes from central metabolic pathways.